A Photochemical Method for the Production of Semiconductor Grade Silicon for Use in Energy Conversion Devices

The large scale use of photovoltaic-generated electricity hinges on the cost if its production. Thin film amorphous silicon is emerging as the next generation solar cell material with commercial potential. The progress in amorphous silicon technology has been rapid enough that it is presently at the manufacturing stage. The commercial method for the production of amorphous silicon is the glow discharge method, using silane as the feed-stock. Photochemical methods are an alternate, potentially more cost efficient, method to prepare amorphous silicon. This project is a systematic study of the photolysis of silanes in the condensed phase ("ice"), with a view to producing amorphous and polycrystalline silicon. The emphasis will be on adapting the condensed phase photolysis for the preparation of semiconductor grade amorphous and crystalline silicon, with the ultimate objective of scaling up the method to a manufacturing process for silicon solar cells. The method has the advantage of easily incorporating any desired dopant by making the latter a co-condensate of the silane host. It has the promise of gentler preparation conditions, compared to the glow-discharge method, thus producing a better quality semiconductor.